CRII: SHF: Regression Testing for Projects with Distributed Software Histories

Developers practice regression testing -- running tests against each
project commit -- to check that project changes do not break any
functionality. While important, regression testing is expensive due to
the number of tests and the number of commits. Regression test
selection (RTS) techniques speed up regression testing by skipping to
run tests that are not affected by recent changes, and regression test
prioritization (RTP) techniques reorder tests to run failing tests
faster. Existing regression techniques analyze only two adjacent
commits, effectively assuming a linear software history. However, the
revolution in version-control systems changed the shape of software
histories. Distributed software histories are complex graphs of
branches and merges, which do not match the simplistic view of the
existing techniques. Although existing regression techniques can be
run if a distributed software history is linearized, these techniques
underutilize the data available in the distributed software history.

To speed up regression testing, the PI proposes to design techniques
that utilize the data available in the entire distributed software
history. This project proposes four tasks to improve RTS and RTP: (1)
non-adjacent commit reuse - discover likely optimal commit to be used
in each analysis rather than always analyzing adjacent commits; (2)
multi-commit analyses - design methods that analyze more than two
commits rather than always analyzing only two commits; (3)
command-aware methods - specialize the methods for various commands
that create each commit rather than be command-unaware; and (4)
unified implementation and evaluation - share the implementation and
results among techniques, and evaluate the techniques on open-source
and industrial projects. The broader impacts of improving RTS and RTP
are to increase developers' productivity and reduce the resource usage
during testing phases.